Mathematical Sciences: Quaternionic Quotients, Einstein Mainifolds, and Mathematical Physics

The research involves the study of the geometry of quaternionic orbifolds and Einstein metrics of positive scalar curvature. The latter includes the construction of metrics on torus bundles over Kaehler-Einstein orbifolds. These have applications to recent advances in supergravity and the non- linear sigma model in particle physics.